Measurement of the Optical Transparency of Deep Antarctic Ice

It is the purpose of this project to measure the optical clarity of the Antarctic polar ice at depths of 300 meters and 1 kilometer. If the ice is sufficiently transparent, then a new proposal will be prepared to attempt to use the ice as a Cherenkov detector for measuring very energetic neutrinos and gamma rays from astrophysical sources.